The Acquisition of a Pulsed 60 MHz FT-NMR Spectrometer

This award from the Academic Research infrastructure Program will help the Department of Chemistry at Delaware State University acquire a Pulsed 60 MHz NMR spectrometer which will be used in research. The research activity to be supported includes the characterization of various transition metal complexes, the chemical elucidation of organic structures, the use of NMR as a confirmation tool in forensic chemistry, and in kinetic studies dealing with the instability of boron complexes. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers and catalysis, and in biology.